Algebraic Structures in Topology

DMS-0104004
Alexander A. Voronov

The goal of the project is to discover and study new algebraic
structures in topology suggested or motivated by mathematical
physics, in particular, quantum field theory and string theory.
More specifically, the project aims at discovering a new algebraic
structure on the homology of an n-sphere space, by which we mean
the space of continuous maps from the n-dimensional sphere to a
given manifold. This part of the project, joint with Dennis
Sullivan, generalizes the work pioneered by Chas and Sullivan
in the case n=1, i.e., that of a usual free loop space. Another
goal is to establish connection between Chas-Sullivan's work and Gromov-Witten invariants, which we believe to be a holomorphic
version of Chas-Sullivan's algebraic structure. Gromov-Witten invariants come from sigma model of quantum field theory, and Chas-Sullivan's work "String Topology" may be regarded as a
topological version of the physical construction. This part of
the project is suggested to be completed by developing a fusion intersection theory of semi-infinite cycles in infinite
dimensional manifolds. Finally, part of the project is
dedicated to relating the above to Kontsevich's Conjecture,
which generalizes Deligne's Conjecture and unravels a deep
relation between deformation theory of abstract n-algebras
and the topology of configuration spaces of points in an (n+1)-dimensional Euclidean space.

The main idea of Algebraic Topology is to be able to recognize
topological properties of a geometric object by associating
algebraic data or structure to the geometric object. Sometimes
the geometry is too complicated to allow immediate understanding
and work with the object, while the algebraic information is
usually simpler by its nature. This project suggests some new
algebraic structure for a sphere space, the space of maps from
an n-dimensional sphere to a manifold. Such spaces are quite complicated and the classical work of Chen, Segal, Jones,
Getzler, Burghelea, Fedorowicz, Goodwillie, and others, produced
not only the computation of the homology of loop spaces, which
are the particular case of sphere spaces for n=1, but
also revealed amazing connections with algebra (Hochschild
complex). Also, recent progress in string theory emphasized
the importance of invariants associated to holomorphic maps
from the 2-sphere to a manifold (Gromov-Witten invariants).
In this project we undertake an analogous study of continuous
maps from the n-sphere to a manifold, which for n=1 has already
enabled significant progress in topology.